International Postdoctoral Fellows: The In Vivo Mapping of Alternative DNA Slippage Structures

9402828 Coco This award is under the International Junior Investigator and Postdoctoral Fellows Program, which enables U.S. scientists and engineers to conduct three to twelve months of research abroad at research centers of proven excellence. The program's awards provide opportunities for joint research, and the use of unique or complementary facilities, expertise and experimental conditions abroad. This award will support a twelve month postdoctoral research visit by Dr. Wayne M. Coco to work with Dr. Hans-Joachim Knackmuss at the University of Stuttgart on the in-vivo mapping of alternative DNA slippage structures. The program will also support a year of re-entry so Dr. Coco can continue his research at Yale University with Dr. L. N. Ornston. In some of the most complex structures now predicted, one can assign hybridization pairings to nearly every stretch of DNA looped away from its normal Watson and Crick pairing strand position. Such structures are thought to act by simultaneously bringing into proximity a large number of motifs. This either allows simultaneous repair at several loci or stabilizes the slippage structure, which increases the time repair mechanisms have to act on any given motif pair. The aim of this research is to map in vivo the DNA slippage structures in pcaD. If successful, the planned experiments would give the first in vivo mapping of DNA strand slippage and increase current understanding of the evolution and maintenance of pcaD, catD and of other genes predicted to undergo slippage events. ***